History of Nuclear Physics Between the Wars

The two decades separating the first and second world wars were bracketed by far-reaching new discoveries in nuclear physics. In 1919, Ernest Rutherford discovered artificial disintegration and in 1938, Otto Hahn, Fritz Strassman and Lisa Meitner discovered nuclear fission. Under this grant, Professor Stuewer is investigating the routes followed by nuclear physicists in going from the first of these discoveries to the second. These discoveries fundamentally transformed the field and established nuclear physics as the most important branch of physics during and after the second world war. Professor Stuewer is tracing the origin and evolution of the nuclear models or theories during the inter-war period and is setting the theoretical, experimental, and instrumental developments that took place within their institutional, social and political contexts. The PI has already gathered the primary and secondary sources, both published and unpublished, necessary to carry out this research program. He has also already undertaken a series of studies that have prepared him to complete this project.